The MACHO Project: Searching For Dark Matter With Microlensing

9800028 Stubbs The MACHO project uses the principle of gravitational microlensing to search for compact objects in the halo, disk, and bulge of our Galaxy. The experiment has been acquiring data since 1992, at the Mt. Stromlo Observatory in Australia. The main objective of the project is to detect and/or constrain the existence of compact objects (MACHOS) in the dark matter halo of our Galaxy. The search to date has been very successful and has made important progress toward determining the nature of the Galaxy's dark matter halo. Dr. Christopher Stubbs at the University of Washington and his colleagues will continue this project for another three year period.